Computational Studies of Dynamical Phenomena in Nanoscale Ferromagnets

9520325 Novotny This project is part of the Computational Approaches to Real Materials (CARM95) program. The Division of Materials Research, Division of Advanced Scientific Computing, and Division of Mathematical Sciences are all supporting this research. Fundamental and technological issues motivate this work. Magnetic mass storage technology is rapidly progressing to the state where single bits are stored on the nanoscale. At the same time, understanding of model and realistic fundamental behavior of ferromagnetism in the restrictive geometries of thin films, whiskers, and single- domain grains is rudimentary at best. The investigators propose to further develop and utilize an acceleration developed by Novotny (the Monte Carlo Markov Absorbing Chain algorithm) to study dynamical phenomena in real ferromagnets in the nanoscale domain. The investigators are developing codes on the SP-2 at the Supercomputer Computations Research Institute at Florida State University. They will then make production runs on the SP-2 at Cornell University. These calculations couple with recent advances in engineering magnetic materials on this scale and on experimental studies of dynamical phenomena using magnetic force microscopies. %%% This project is part of the Computational Approaches to Real Materials (CARM95) program. The Division of Materials Research, Division of Advanced Scientific Computing, and Division of Mathematical Sciences are all supporting this research. Fundamental and technological issues motivate this work. Magnetic mass storage technology is rapidly progressing to the state where single bits are stored on the scale of thousands of atoms. At the same time, understanding of model and realistic fundamental behavior of ferromagnetism in the restrictive geometries of thin films, whiskers, and single-domain grains is rudimentary at best. The investigators propose to further develop and utilize a computer algorithm developed by Novotny that is much f aster than others. The project simulates phenomena that evolve in time in real ferromagnets on the scale of thousands of atoms. The investigators are developing codes on a parallel computer at the Supercomputer Computations Research Institute at Florida State University. They will then make production runs on a similar machine at Cornell University. These calculations will couple with recent advances in engineering magnetic materials on this scale and on experimental studies of dynamical phenomena using magnetic force microscopies. ***